The 1996 National EPSCoR Conference

9633779 Pederson The purpose of this project is to organize and manage the 1996 National EPSCoR Conference to be held in the Washington DC-area in September of 1996. The two-day conference will include speakers, poster sessions, and discussions on a variety of topics of importance to the EPSCoR state participants. Travel grants will be awarded for up to five individuals from each EPSCoR state who are key contributors to the EPSCoR program in that state.